Topology of Four-Manifolds

Proposal: DMS-0072722

Abstract:

This project is centered around the classification theory of topological
4-dimensional manifolds. One goal is to find sufficient algebraic
conditions for splitting of a 4-manifold as a connected sum, up to an
s-cobordism, in terms of the fundamental group and the intersection
pairing. The main techniques for classification of manifolds,
surgery and s-cobordism conjectures, remain open for 4-manifolds
with large fundamental groups. This project will focus on a new
approach to the problem, searching for involutions on certain
canonical examples, and for possible obstructions from gauge theory.

The classification of possible large-scale structures in dimension 4,
which locally look like the 4-dimensional space-time, turned out to be
a much more subtle problem than in higher dimensions. This area of
research lies at the intersection of topology, geometry, analysis and
physics. This project is aimed at a better understanding of 4-dimensional
objects with large fundamental groups, which contain many loops
that cannot be contracted. In particular, one goal is to analyze when
a given object may be decomposed into more elementary building blocks.